High Performance Network Connections for Science and Engineering Research - HPNC: University at Albany Connection to vBNS and Abilene via NYSERNet Network

The proposal plans to connect SUNY-A to vBNS and Abilene via the NYSERNet Network for the following research and educational purposes: electronic government funded by the NSF PACI program; northeast regional climate modeling; interactive real-time regional air quality forecast and management system; real-time transmission of meteorological data; mesocale model and global analysis; network-based visualization of large-scale databases.